An Observational and Model Investigation of Orogenic Blocking in the Western United States

McKee has been awarded a grant to continue his studies of the interaction between diurnally varying up- and down-valley winds and the overlying synoptic-scale flow. These are separated by an intermediate layer between valley top and mountain top. Its dynamic state determines the degree of coupling between these two circula- tion systems. This coupling is poorly understood. In the past, difficultys in observing this layer impeded the development of adequate theoretical treatments of the important complex of processes occurring there. McKee hypothesizes that in the western U.S. orogenic (mountain) blocking, in which the lower air is prevented from flowing over the mountain tops, is the primary phenomenon controlling this layer. He plans to use recently developed observational systems in a field program during the first grant year, and subsequently to use the field measurements in conjunction with the CSU-RAMS numerical model to investigate the evolution and duration of mountain blocking. The study is intended to confirm or reject the hypothesis that areas west of the Continental Divide are blocked for extended periods during the winter, to define the length of the primary season for blocking, and to provide increased understanding of the nature of the phenomenon. Orogenic blocking is likely to be important for climate because of its effects on vertical heat and moisture transports, and on the effective drag on overlying large scale circulations exerted by complex terrain at their lower boundary. It also has many important practical consequences in terms of local meteorology (e.g. air quality and valley winds).